Development of an Integrated Superconducting Gravity Meter Sensor System for Subsurface Water Storage

0345864
Wilson

This grant supports acquisition, development and testing of a field superconducting gravity-meter (FSG) as an ultra-sensitive system for monitoring fluctuations and trends in subsurface water storage over long (months) unattended deployment periods. The FSG will be constructed from a commercially available superconducting gravimeter (GWR, Inc.) that does not require liquid Helium replenishment and integrated with meteorological sensors (barometric pressure, temperature, humidity, precipitation), a field enclosure and appropriate monumentation and deployed at two test sites in Texas and Arizona (through a subaward to the Univ. of Arizona) representing varying aquifer types. The monument design will allow for re-occupation of the sites. Observational experience at these sites will lead to understanding of appropriate environments for deploying the sensor system and sampling requirements (minimum duration of gravity observations, spatial sampling of lateral heterogeneity, and data processing methods). The GWR. Inc. superconducting gravimeter has a stated sensitivity of 1 part in 10 billion of the Earth's field in laboratory tests. If similar measurement sensitivity can be achieved in the field and with appropriate corrections for atmospheric pressure and humidity, soil moisture, temperature and any changes in vertical displacement at the instrument site, the PI's hope to detect cm-level changes in the underlying water table height and together with other independent hydrological measurements at well characterized sites, should be able to separation of water storage components between unsaturated and saturated zones, estimate aquifer parameters such as specific yield, and improve quantification of hydrologic processes, including infiltration, evapotranspiration, and recharge.
***